Engineering Research Equipment: High Speed Infra Red Radiation Detector System for Use in Thermographic Measurements in Dynamically Deforming Advanced Materials

9622241 Lambros This Research Equipment Grant will be used by the Department of Mechanical Engineering at the University of Delaware to purchase a high speed infra red radiation detector system to measure the temperature increase during dynamic deformation of polymer matrix composites, ceramics and ceramic composites. It is planned to measure the temperature fields generated during dynamic deformation and fracture of these advanced materials. The results of a complete study of the coupling between damage and thermal effects in these materials is needed for the formulation of physically meaningful and accurate thermomechanical damage models for advanced materials and composites. This is an important aspect of material behavior which deserves careful study, especially in advanced materials. This equipment will be used in several current research projects and will also be available for use by other faculty at the University. ***